Stochastic Control and Applications in Economics

9970852
Fleming

This project has two parts. The first concerns risk-sensitive
stochastic control on an infinite time horizon, with applications in
finance. Investment control policies are sought which maximize
the long term growth rate of expected utility of an investor's
wealth. Infinite horizon robust control problems are considered as
deterministic, small noise intensity limits of risk sensitive
problems. The second part concerns macroeconomic growth/debt
models for developing economies in which interest and production
rates are modelled stochastically. In the models to be considered,
capital investment and consumption are being controlled. Among
the modelling issues to be addressed are appropriate limitations on
borrowing through either hard constraints or penalty functions.

This project concerns optimal stochastic control techniques for
problems of finance. One area of application concerns investment
portfolio optimization over long time horizons. The goal is to
suggest investment control policies that provide good growth of an
investor's wealth. This is done by optimizing some risk-sensitive
performance criterion. Another area of application is to
international finance and debt. Recent crises, especially in Asia,
have led to questions concerning the causes, how crises can be
prevented and possible early warning signs of vulnerability. The
goal of this research is to develop and analyze stochastic control
models for the growth of developing economies in which interest
and production rates are modelled stochastically. The model
performance under optimal control policies may provide
benchmarks to indicate whether actual current account deficits and
foreign debt are sustainable under current policies.